CISE Research Infrastructure: MIDSHIP: Managing Image Data for Scalable High Performance

9623632 Naughton, Jeffrey Larus, James University of Wisconsin CISE Research Infrastructure: MIDSHIP: Managing Image Data for Scalable High Performance This award is for the acquisition of a cluster of shared-memory processors (SMPs) to support the MIDSHIP project of research into enabling technologies for large-scale mining of image data sets. The equipment will help researchers at the University of Wisconsin to perform research: (1) on the application side: medical image mining using mathematical programming techniques, machine learning techniques applied to image understanding, view synthesis and visual exploration, and querying by image content; and (2) on the systems infrastructure side: parallel hardware and software systems, performance tools for profiling parallel systems performance and analyzing workload requirements, image storage and compression, and parallel image database management technology. It will also support a wide variety of research projects in such diverse fields as Biological Science, Geology, Materials Science, Medicine, and Space Science.